Modeling and analysis of nematic liquid crystals in thin geometries: Bistable configurations and free surface instabilities

Cummings
DMS-0908158

This project centers on developing new analytical models for
nematic liquid crystals (NLCs) in two basic configurations. The
first concerns NLCs "sandwiched" between two solid boundaries,
subject to an applied electric field. This geometry is directly
relevant to a number of liquid crystal display devices. By
investigating the response of the NLC layer to an external
electric field, the investigator and her colleage develop new
models relevant to the design of bistable LCD devices. Advances
here could lead to the development of new, easily-manufactured,
energy-saving technologies. The second configuration considers
free-surface dynamics of NLC films and drops, relevant to
numerous manufacturing processes. Mathematically, the problem is
complicated by the need to model carefully the liquid crystal
behavior in the vicinity of any contact lines. This, in addition
to the known unstable behavior, leads to a very complex problem,
about which little is known theoretically. Systematic asymptotic
reduction of the complex Ericksen-Leslie equations for nematic
media, to the appropriate thin-film geometry, is made. The
formulation includes the effects of finite anchoring strength of
the liquid crystal director field at the boundaries, and the
effects of liquid-solid interaction energy (via a disjoining
pressure). The theoretical investigations are augmented by an
experimental program, comprising simple table-top experiments
carried out by summer students at NJIT, and more sophisticated
investigations carried out by an experimental collaborator, Peter
Palffy-Muhoray, at Kent State University.

The project has two strands: A theoretical investigation
into optimal design of low-energy (so-called "bistable") Liquid
Crystal Display (LCD) devices, for use in applications such as
e-paper; and an investigation into the dynamics of nematic liquid
crystals spreading on surfaces, a process known to be unstable in
certain situations. The development of a theoretical base for a
workable, easily-manufactured, low-energy LCD device would have
undeniable economic and environmental impact if it proved
competitive, in terms of cost or performance, with the small
number of such low-energy LCD microtechnologies presently
available. The investigations into free-surface spreading lead
to a better understanding of coating processes and, particularly
with the inclusion of an electric field, offer potential for new
ways of controlling the evolution of spreading films in
manufacturing processes. This project is carried out in
coordination with educational efforts that include invaluable
research experiences for undergraduate students.